NSF’s Eddie B. Johnson INCLUDES Alliance: Accelerating Learning and Readiness in STEM Education (ALRISE) through Institutional Capacity Building and Sustainability in Experiential

The ALRISE Alliance is developing a network of faculty, staff, administrators, and students at 2-yr and 4-yr Hispanic Serving Institutions (HSIs) and emerging HSIs (eHSIs) to accelerate student readiness in science, technology, engineering, and math (STEM) education. Challenges include: (1) Creating intentional, student-centered campus environments that support all STEM students without exclusion; (2) Shifting responsibility for change to institutions and educators by leveraging students' assets, strengths and to foster environments that promote reproducible success; (3) Mending the leaky pipeline in STEM by improving retention and completion rates, which currently lag behind enrollment for many student populations; (4) Expanding participation in STEM workforce pathways, reducing structural barriers that limit entry into high-demand STEM job sectors; and (5) Increasing research on innovative approaches for STEM students within the classroom and outside the classroom to address gaps in the current literature related to experiential learning. These factors place a necessity for change on institutions, educators, and employers to intentionally harness students’ assets and create a more welcoming environment that fosters reproducible success. The ALRISE Alliance provides professional development for faculty, staff and industry to serve students with intentionality through student-centered undergraduate research and work-based experiential learning.

ALRISE fills an important gap with its focus on student-centered experiential learning in an action-oriented and data-driven environment of continuous improvement and collaboration. The Networked Improvement Community collaborative infrastructure of the ALRISE Alliance will mobilize large-scale change through shared vision, partnerships, common goals and metrics, leadership and communication, and potential for expansion, sustainability, and scale. The ALRISE backbone organization, Center for Broadening Participation in STEM at Arizona State University, provides leadership and communication structures to connect and collaborate amongst four Regional Hubs that coordinate a total of 26 HSI/eHSI institutional members and their STEM Planning educator teams. Partner subgroups defined by professional expertise in experiential learning and intentionality, undergraduate research, work-based experiences and advocacy and policy will provide services for assessing and developing intentionality across the Alliance. A continuous improvement cycle will be used to effect change locally while also improving the ALRISE Alliance and processes. Quantitative and qualitative data will be collected and analyzed at the student, institutional, and experiential learning program levels to provide evidence for practices supported and disseminated by ALRISE. Triangulated findings from multi-level mixed methods research, and outcomes from formative and summative evaluation, will advance knowledge on student-centered practices, HSI intentionality, and as-yet undiscovered common challenges and synergies within and across Alliance members. Instilling intentionality to serve students at the institutional level, and through asset-oriented educator professional development and coaching, will build capacity to effect change at each member institution. This capacity-building approach will not only serve the students actively engaged in experiential learning programs but also retain the knowledge and programs to impact a far greater number of students in the future.